Numerical Methods for Microscale and Nanoscale Multiphase Flow in General Geometries

The research is for the development of mathematical and numerical models for the full numerical simulation of jetting phenomena. The principal investigators develop new mathematical and numerical models for phase change, vapor bubble formation, vapor bubble collapse, and "explosive evaporation." New numerical methods for including compressibility in low speed flow are being developed. The resulting models are cast in an adaptive mesh framework in order to gain in CPU runtime and memory efficiency.

This research program, the numerical simulation of jetting devices, unravels basic physical mechanisms underlying the jetting processes. This leads to improvement in design of microscale jetting devices. The simulation substantially reduces the design cycle period of such devices as ink-jet printers, soldering, and the application of DNA strands.